The XIIIth International Symposium on Nuclear Quadrupole Interactions, to be held July 23-28, 1995 at Brown University, Providence, Rhode Island

9505534 Bray The XIII International Symposium on Nuclear Quadrupole Interactions will be held July 23-28, 1995 at Brown University in Providence, Rhode Island. The symposium will be devoted to all aspects of NQI in gases, liquids and solids covering both experimental and theoretical work e.g. microwave measurements in gas phase, Mossbauer spectroscopy, NMR, ESR, NQI, quadrupolar interactions in superconductors, metals, biological and polymeric materials. There will be several plenary lectures given by the internationally known scientists in the field. Scientific papers will be reported in the oral and poster presentations at the meeting. %%% This symposium presents a unique opportunity for international scientists to present multidisciplinary research results in broad classes of materials and enable students to interact with world-class scientists. ***